RI: Leveraging Implicit Human Feedback on Deployment for Continually Improving AI

Although Artificial Intelligence (AI) models are trained on massive datasets, they often fail on new things outside of their training set. In the real world, these failures can be costly, especially as AI agents are deployed to interact with people. Whether as chatbots or household robots, AI agents do not operate in isolation, but with and around people, and cannot afford to break whenever something new or unexpected happens. Yet human-AI interaction provides a unique opportunity for AI to adapt, because humans often implicitly reveal their preferences, goals, and expectations during these interactions. This project will develop AI that adapts to new experiences and users, continuously improving during deployment by learning from the cues that people naturally provide. By leveraging this implicit information, the project aims to move from pre-trained AI with fixed, rigid behavior, to AI that can learn on-the-fly from what people do. This will enable human-in-the-loop training without additional human effort, creating AI systems that are more robust, adaptive, and human-like.

The project introduces reinforcement learning from implicit feedback, a framework for learning from readily available human feedback without requiring users to alter their normal workflows. The research considers three sources of implicit feedback: 1) People intervene when an AI system makes a mistake, implicitly revealing a preferences for the altered state or behavior; 2) Interactions with AI systems reveal information about a user’s needs, preferences, and goals, enabling personalization over time; 3) People independently pursuing their own goals in the environment signal information that AI systems can learn from via passive observation. In each setting, the project will develop techniques to leverage these signals for improved test-time performance. The societal benefit of this work is to shift model improvement and specialization from centralized model developers toward the end users and environments in which AI systems are actually deployed. Rather than relying only on monolithic models that must generalize to everyone, the resulting systems could adapt on deployment to particular users, tasks, and contexts. The results will be disseminated to academic, educational, and public venues, and used to develop training and mentoring activities for AI and robotics.